Building Complex Real-Time Systems Using the Object-Oriented Paradigm

The objective of this research is to develop an object-oriented paradigm for building complex real-time systems. By extending the polymorphic structure of data types to the performance domain, this paradigm allows the system timing and performance to be defined explicitly in the program and verified and enforced mechanically. A real-time program component is implemented as a set of functionally correct methods with different performance requirements, one of these methods will be selected for execution either dynamically or statically based on the actual resources available. In addition, flexible scheduling policies are used to ensure that the timing constraints of all jobs are satisfied. By utilizing the performance flexibility for program execution and scheduling, the timing correctness of real-time programs can be better guaranteed.